Exploring the Tea Road to Alaska through Workshop Participation, Archaeological and Archival Investigations in Irkutsk and Kiakhta, Russia

This award supports travel that will allow U.S. and Russian scholars to participate in a small international conference on Russian America in Kiakhta, Russia. Related collaborative activities, with opportunities for student involvement, will include archaeological testing in Kiakhta, the characterization of historical documents in the Kiakhta archives, the collection of archaeological glass samples for chemical analysis from the 18th century Tal'tsinka glass factory near Irkutsk, and the opportunistic examination of museum collections.

Despite close geographic and historic ties between Siberia and Alaska, there has been little cooperative work in historical archaeology. Through a multi-faceted approach, this project advances information exchange and scientific research in the ancient gateway city of Kiakhta, through which Chinese tea and durable goods entered Russia for distribution throughout its empire, to include colonial settlements in North America. The project also allows for the continuation of research in and near Irkutsk, the administrative center of Siberia from which expeditions to America were organized. The data from Kiakhta and Irkutsk may help us to better understand this chapter of U.S. history by elucidating the origin and nature of goods shipped to Russian America.

The merit of the proposed activity lies in the promotion of an international community of students, investigators, and cultural resource managers dedicated to conducting joint research on the shared history of Russia and the U.S. during the time of Russian America. It also presents an opportunity for U.S. scholars to establish work relations in the multi-ethnic Republic of Buryatia. This project broadens the understanding of colonial Russian America and its historical connections with China and central Siberia through the dissemination of knowledge and development of collaborative international partnerships. The involvement of students encourages the perpetuation of joint research in the region. The project also emphasizes cooperation between Russian and U.S. museums through a "sister museum" concept.